Dissertation Research: Environmentalist Discourse and Practice: Costa Rican Peasantry

This project involves the dissertation research of a cultural anthropologist from the University of New Mexico. The student will study how Costa Rican peasants defend their agricultural practices from environmentalist criticism, at the same time that the peasants try to insure the continued viability of their farming occupations. Using a mixed methodology of participant observation and intensive interviews of a small sample of peasant households, some more and some less "environmentalist", the study will show how rural farmers use information and rhetoric "from above" to defend their lifestyles. This project is important because environmental concerns must be adopted by rural as well as urban households if conservation policies are to be successful. This sort of in-depth case study will provide valuable information on how rural peoples understand and react to environmentalist arguments, which can help designers of conservation policies improve their programs.